Project Scientifica

The North Carolina Museum of Life and Science requests support for a project in informal learning in the physical sciences in the Discovery Room at the North Carolina Museum of Life and Science which will be coordinated with the local middle school's 6th grade science program. Among the anticipated activities are: (1) mentoring through pairing of the students with participating private sector scientists; (2) two 40-hour teacher in-service institutes on use of the resources in the Discovery Room; (3) replication of eight Discovery Room activities for classroom use throughout the Museum's greater region; and (4) development and dissemination of materials that will permit replication of Project Scientifica by other institutions. The partnership will bear about 58% of the anticipated project costs.